STTR Phase I: Rapid Solar Thermal Gasification and Pyrolysis of Cellulose and Lignin for Renewable Fuel Production

This Small Business Technology Transfer (STTR) Phase I research uses solar thermal energy as a novel way to provide the necessary energy for renewable biomass conversion to energy or useful products, and develops the science required to engineer an efficient and commercial solar biomass conversion facility. Gasification and pyrolysis of representative biomass resources grown near solar regions (corn stover and sorghum) will be converted via thermogravimetry, controlled aerosol reaction, and on-sun demonstration of feasibility of this approach. Thermogravimetric experiments will determine chemical kinetics and necessary conditions for high selectivity to syngas and tar mitigation. Economic simulations will determine the main cost drivers for product price and highlight the syngas products with highest near-term scale-up potential.

The broader impacts of the application of solar thermal energy to thermochemical conversion of biomass will provide a bridge between these sources of renewable energy that could surmount many of the challenges associated with conventional biomass processing technologies. Combined use of solar energy with biomass has a larger potential than either renewable resource alone and will help alleviate the nation''s dependence on foreign petroleum, generate economic growth, create fuels that are environmentally sustainable, and have an impact on the overall human impact of energy use.